CAREER: Graph Information System: Deciphering Complex Networks

Graphs and networks are ubiquitous, encoding complex relationships
ranging from chemical bonds to social interactions. Hidden in these
networks are the answers to many important questions in biology,
business, and sociology. In order to analyze complex networks, users
have to master sophisticated computing and programming skills. It
indeed becomes a pain point for many scientists and engineers.

This project is to change the state of the art by developing a
general graph information system, which is able to address the needs
of searching and mining complex networks. Real-life networks are
complex, not only having topological structures, but also containing
heterogeneous contents and attributes associated with nodes and
edges. The mixture of structures and contents raises two challenges
that require new solutions for smarter and faster graph analysis.
First, new types of graph search and mining operations, such as graph
aggregation, graph association, and graph pattern mining, are
emerging. Second, when graphs become complex and large, most of
existing graph mining algorithms cannot scale well.

This project addresses these challenges and performs a
comprehensive study of a general graph information system.
The system includes three major components: complex graph search,
graph pattern mining, and graph indexing.
It covers emerging structure queries in social,
biological, and information networks, new graph mining operators
such as graph summarization and association, and innovative indexing
methodologies, e.g., differential graph index.

This research is tightly integrated with education through student
mentoring and curriculum development. Publications, software and
course materials resulted from this project are disseminated on the
project website: http://www.cs.ucsb.edu/~xyan/gis.html.